A Workshop on 'New Directions in Materials Design Science and Engineering'; Atlanta, Georgia; October 19-23, 1998

9713569 McDowell To refine the vision of Materials Design Science and Engineering (MDS&E), develop a common understanding of its fullness, and chart out a conceptual roadmap necessary to pursue it within the broad materials education and research community, the Materials Council of the Georgia Institute of Technology, in collaboration with the materials faculty at Morehouse College, will hold a workshop in the fall of 1998 in Atlanta . The primary objectives of the workshop are to identify the critical issues and potential impact of MDS&E on the nationOs educational and research enterprise, both obstacles and opportunities, and to identify specific areas for follow-on workshops. The workshop engages keynote speakers and panel discussions in each of four themes: Structure-Property Relations across Length Scales, Materials Synthesis and Design, Elements of Process Design Science and Engineering, and Multidisciplinary Materials Education. The distinguished speakers and panelists in each theme are drawn from a broad range of science and engineering disciplines. A report outlining a refined vision of MDS&E that identifies key challenges and opportunities will result from the workshop. This grant is funded by the Office of Multidisciplinary Activities in the Mathematical and Physical Sciences Directorate. %%% The workshop contributes to the directions that should be taken in future materials research and development by examining anticipated needs and impact in the field.